Glacial - Interglacial Temperature and Salinity Changes in the Western Tropical Atlantic and Eastern Tropical Pacific

0117886
Lea/Abstract

Funds are provided for the PI to continue his work on linked Mg/Ca paleothermometry and Delta 0-18 in planktic foraminifera to further the understanding of climate variability in the Pacific and Atlantic Oceans on millennial and orbital time scales using four cores from Ceara Rise, Cariaco Basin, Galapagos Platform and Carnegie Ridge. The PI will deconvolve the temperature and salinity paleorecords in the tropical western Atlantic and eastern Pacific by measuring the Mg/Ca and d18-0 in foraminifera from these four sites. The PI also hopes that the results of the proposed research will enable him to address issues related to the Pacific-Atlantic salinity differences on millennial. and orbital time scales.